CT-ISG: Collaborative Research: Non-bypassable Kernel Services for Execution Security

Society is dependent on many engineered systems whose increasing
complexity and inter-connectedness have, in turn, increased their
vulnerability to adversarial attacks. In many of these systems,
protecting the execution of their computations is as crucial as
ensuring the security of their data. This research investigates how
to maintain survivable operation of such systems, even in the face of
invasive attacks where computations are intentionally subverted to
interfere with other computations' execution constraints.

The goal of this research is to develop new techniques for isolating
the effects of interactions among computations through specific
resources in these systems, including: flexible specification and
rigorous enforcement of computations' execution constraints; explicit
control of all OS kernel components under a single scheduler; detailed
on-line monitoring of computations and their supporting OS kernel
components; automated learning to discover previously unknown
interactions among computations; and formal modeling and verification
of computations, execution constraints, and system components and
resources.

The expected benefits of this project include: a novel approach to
non-bypassable isolation of computations from the effects of
adversarial attack in which isolation can be enforced flexibly
according to the system-specific execution constraints that must be
satisfied; a high quality open-source software implementation of
kernel-level scheduling and monitoring services that provide and
measure such non-bypassable isolation; new formal models, analyses,
and methodologies for verifiably correct configuration and management
of those services; and empirical studies of the services' ability to
protect computations from interference under a wide range of
adversarial attacks.